Innovative Electrostatic Printing Process for Low-Cost Printers

9361977 Schmidlin A simple powder marking process known as Direct Electrostatic Printing (DEP) was invented by the Principal Investigator to enable the development of affordable desktop color printers. The process proved to be capable of printing images with 12 dots per mm. resolution at speeds up to 15 cm/sec; but fell short of becoming practical due to its sensitivity to wrong sign toner. A new electrostatic process has now been conceived by the Principal Investigator that should overcome the limitations of DEP while preserving all of its desirable attributes. The feasibility of this new proprietary process will be demonstrated by DPI Technologies in the proposed research via the design of a new structure and process (based on analysis) and experimental fests using an existing laboratory fixture. Successful results from the proposed research will justify the follow-on development of a revolutionary innovative technology. This technology will enable the subsequent development of a wide variety of new and improved non-impact printers. There is an enormous market need for the kind of simple, reliable, robust, low-cost monochrome or color printers that this technology is capable of enabling. Products with the unique ability to form durable, tamper-proof pictures and labels for security applications are also possible. ***